Acquisition of Instrumentation for Elemental and Isotopic Analysis

9977873
Patrick Brown
UC Davis

Abstract

This project involves the acquisition of instrumentation in support of the establishment of a Center for Elemental mass spectrometry at the University of California, Davis. The instrumentation to be purchased will be capable of isotope ratio and quantitative determination of elements. The proposed center, in combination with the recently NSF-funded facility for H, C, N and O isotope determination will provide a world-class facility for inorganic mass spectrometry. The instruments to be purchased include a normal resolution, inductively coupled plasma mass spectrometer (ICP-MS); an ICP-MS equipped with magnetic sector MS and multi-collector detection system (MC-ICP-MS); and an ICP optical emission spectrometer (ICP-OES). These instruments will have a broad user base that will make optimal use of their varied capabilities.

Many disciplines in the fields of biological, environmental , geological and engineering sciences require detailed knowledge of the chemical and isotopic compositions of naturally occurring and laboratory-synthesized materials. Of special interest to the biological and environmental sciences are, for example, the pathways of trace constituents in the food web, biological complexation and transformations of trace elements in plants, animals and aquatic organisms; the fate of contaminants in surface and sub-surface environments, and modeling of watershed dynamics. In the geological and engineering sciences knowledge of element abundance and isotopic composition are used to establish evolutionary trends from rock successions/suites; to constrain paleoenvironmental parameters and paleoclimates and characterize material properties. What is common among these diverse applications of trace elements and isotope systems is the requirement of analytical instrumentation capable of measuring elements and individual isotopes in samples with high precision and accuracy.

The requested instruments and sample introduction systems will provide analytical capabilities to characterize the chemical composition of high solute-containing samples and solute concentrations at extreme dilutions with high precision and accuracy.

Sixteen PIs and senior personnel associated with 9 campus departments, 15 graduate programs and three colleges directly support this proposal and a significant number of additional faculty will benefit directly. A large number of graduate and undergraduate students will also benefit from the proposed center through course work and individual research projects.